Mechanics of Contact with Application to Brake Squeal and Axially Moving Media

This proposal concerns the study of flexible structures, such as disk breaks, magnetic tape drives and computer hard disks, whose mechanical behavior is significantly affected by frictional contact conditions. Of specific interest in the proposed research is the analytical modeling and computational implementation of novel friction laws (including wear) for the study of vibratory phenoomena such as squealing and chattering, which depend crucially on the modeling on the material interfaces.